RAPID: Site Excavation, Central Alaska

This is a moderate RAPID award for the researcher to excavate a feature at an archaeological site that is potentially culturally significant and in danger of being destroyed.